Institute for Systems Research Young Scholars Program

9552892 Fuja The University of Maryland will initiate a six-week, summer commuter, Young Scholars project in engineering at the University of Maryland Systems Research Center for 25 students entering grade 12. By providing a balanced exposure to class, laboratory, and field activities, the goal is to introduce Young Scholars to a cross-disciplinary spectrum of engineering and scientific fields. First-hand experiences in research will be provided to encourage and stimulate students to pursue advanced education and to discover the vast career opportunities in science and engineering.